Studies of the Mechanism of Pyridine Nucleotide Dependent Enzymes

9315654 Anderson The objective of this project are to gain further understanding of the functioning of pyridine nucleotides as coenzymes for oxidation- reduction reactions and as substrates for NADases, NMNases, nucleotide pyrophosphatases, and ADP-ribosylases Structural analogs of NAD, NADP, NMN, and nicotinamide mononucleotide will be synthesized, chemically characterized, and applied in studies of selective interactions with pyridine nucleotide dependent enzymes. Included will be derivatives designed as alternate substrates, reversible inhibitors, fluorescent probes, and site-labeling reagents. The project will involve the purification of pyridine nucleotide dependent enzymes followed by characterization with respect to chemical, physical and kinetic properties, and identification of functional groups involved in catalysis, binding and regulatory processes. Enzymes chosen for study include the NMN:ATP adenylytransferase, NAD kinase, and selected dehydrogenases of Haemophilus influenzae, enzymes involved in the unique NAD metabolism of this organism, and essential for meeting the unique NAD growth requirement of this organism, and the glucose 6- phosphate dehydrogenase of Azotobacter vinelandii, an enzyme of importance for producing reduced pyridine nucleotides as primary electron donors for nitrogen fixation. These studies will employ spectrophotometry, fluorimetry, titrimetry, HPLC, electrophoresis, affinity chromatography, and a number of general biochemical and chemical techniques.%%% The energy requirement for the maintenance and support of growth of living cells can be met through reactions involving the oxidation of various cell nutrients. These oxidative reactions are enzyme- catalyzed and in most cases, involve enzymes (catalytic proteins) that function in conjunction with one of two common second reaction components, namely, the pyridine nucleotide coenzymes. These coenzymes are organic compounds that are essential for the oxidative proce sses to occur and therefore, are of prime importance for cell metabolism. the objective of this project is to gain further understanding of the way in which these coenzymes participate in the oxidative reactions. In these studies, several enzymes that catalyze this type of reaction will be purified through various fractionation techniques. As pure proteins, these enzymes will be studied with respect to specific interactions with the pyridine nucleotide coenzymes. To facilitate these studies, the chemical properties of the coenzymes will be altered by preparing structural analogs of the natural coenzymes. The structural analogs will include derivatives designed to accelerate or inhibit the enzymes involved. Attention will be paid to specific enzyme-coenzyme interactions that could be impotant for metabolic control of the enzymes in their intracellular environment. Enzymes will be chosen for study due to their involvement in important biological processes. One such enzyme will be obtained from Azotobacter vinelandii, a microorganism currently under study because of is importance in nitrogen fixation. Other enzymes will be obtained from Haemophilus iinfluenzae, the causative agent of bacterial meningitis in infants ***